Temporal Measurements in Upper Level Undergraduate ChemistryLabs

This college is one of a select group of small, primarily undergraduate institutions that has been particularly successful in preparing undergraduates for graduate work in chemistry. Success is attributed to a long tradition of strong undergraduate research participation and to the department's ability to expose undergraduates to modern instrumentation. Through this project, new instrumentation was acquired to enable the faculty to develop innovative experiments involving temporal dependent measurements in the upper level labs. The instrumentation, which was a natural extension of previous facilities, allowed the department to expose students to equipment which can probe time scales from nanoseconds to seconds and energetic processes from the UV/VIS to the radiofrequency range. The equipment made a major impact on the Chemical Instrumentation, Physical Chemistry, Biochemistry and Senior Research courses. The specific items acquired were a fluorescence lifetime instrument, a variable temperature probe for the NMR, and components for the addition of an IR laser to their flash photolysis apparatus. The institution contributed to this project in an amount equal to the NSF funds.